Housing Research Agenda Workshop

Abstract

Housing is one of the most basic needs of human beings. Providing affordable, durable and
quality homes has always been one of the greatest challenges faced by society. Over the
years, a fair amount of research efforts have taken place to help meet the challenge of
providing adequate housing. In recent years, there has been a renewed emphasis on housing
technology research due to the PATH (Partnership for Advancing Technologies in Housing)
program initiatives at the U.S. Department of Housing and Urban Development (HUD) and the ational Science Foundation (NSF).
The overall purpose of the proposed workshop is twofold (1) to compile State of the
Art of the housing technology research by summarizing recently completed and on-going
NSF-PATH and other related research efforts, and (2) to develop future research directions
in major areas of housing technology. The workshop will focus on five major areas (1)
Construction Management and Production, (2) Structural Design and Materials, (3) Building Enclosures, Utilities and Energy Systems, (4) Community and Economic Impacts of Housing Technology, and (5) Systems Interactions and Whole House Approach.
The proposed workshop will serve as an important step in advancing knowledge in the field
of housing technology, as well as in the broader housing research arena. In order to
ensure a broader impact of the proposed workshop, groups that are underrepresented in
science and engineering fields will be given special consideration when selecting
participants. In addition, the focus area leaders and participants will be encouraged to
include examples of integrated research and education activities as part of their research
agenda position papers.
The workshop is scheduled to be held on February 12-14, 2004 at the University of Central
Florida campus in Orlando, Florida. The funding is requested for August 16, 2003 -August
15, 2004, based on the overall schedule.